XII International Congress for Electron Microscopy to be Held in Seattle, Washington, August 12-18, 1990

The Twelfth International Congress for Electron Microscopy will convene in Seattle in August, 1990, as the first world EM Congress to be held in the United States since 1962. This mile- stone event will establish the directions and objectives for the theory and practice of microscopy and determine research priorities for the remainder of the century. Although the emphasis will be on electron microscopy, other advanced forms of imaging, such as confocal microscopy and scanning tunneling microscopy, will also receive full coverage. The scientific program is arranged around some 55 symposia and about 250 lectures by recognized international experts on imaging of crystalline and amorphous materials, surface and bulk microanalysis and applications to structural and microelectronic materials. More than 2600 scientific participants are expected to attend and contribute at least 2800 platform and poster papers.